Lamellar-Micellar Transitions in Surfactant-Phospholipid- Protein Mixtures

Amphiphilic molecules dispersed in aqueous solution spontaneously assemble into structures thought to be defined by the size, shape and chemistry of the entire system. In the dilute region of the phase diagram, phospholipids and surfactants undergo a vesicle- micelle transition with increasing fraction of surfactant. Two types of micelle were observed recently, a cylindrical mixed micelle and small mixed micelles at higher surfactant levels. The phase behavior of phospholipids with surfactants at high water content will be examined to elucidate the process of structural transition in these mixed systems from a thermodynamic and kinetic perspective. The structures will be identified and the positions of the phase boundaries determined as a function of amphiphile chemistry and thermodynamic parameters (temperature, pressure). cylindrical mixed micelles and their formation from small mixed micelles or vesicles will be characterized by separation techniques, fluorescence probes sensitive to the differences between these structures, nuclear magnetic resonance, and the kinetics of the transition. Molecular packing models will be tested and the energetics of assembly will be calculated in order to improve the quantitative models to be applied when using amphiphiles to create, for example, biological model membranes, drug delivery systems, and protein crystals. %%% The focus of this study is a class of molecules called amphiphiles. The amphiphiles have two parts, an oily, nonpolar or hydrophobic end, and a polar, hydrophilic end. A special class of amphiphiles is the phospholipids which along with amphiphilic proteins make up the membranes that surround the biological unit of the cell. When amphiphiles are added to water, they self-assemble into clusters of molecules with the polar hydrophilic groups facing the water and the nonpolar hydrophobic groups clustered together in the center. The shape and size of these structures depends on the shape and relative concentrations of the molecules that compose them. This study will focus on the biological amphiphiles dispersed in water with a series of detergents that are used in biological studies. The goals are to describe the structural transitions that occur as the relative detergent concentration changes using electron microscopy and several spectroscopic techniques. Understanding these systems may have far-reaching consequences. Subtle changes in phospholipid structure are likely to regulate cell function. Although the temperature and pressure affect the characteristic properties of an amphiphiles - water system details are not well known. The general principles learned will have a broader application for all amphiphilic mixtures from detergent design to the rheology properties of mixture of oils and emulsifiers.